Graphics Calculators And Internet Coalition Conference

9355468 Hofmann This project is a two-day conference, January 28-29, 1994, on the use of graphing calculators for 200 middle and high school mathematics and science teachers with additional post-secondary participation. The conference will be held at Montgomery Community College, Blue Bell, PA and service participants from that area. Participants will receive a conference proceedings and must commit to part of an e-mail network with regular contributions coming from conference leaders, participants and technical support staff. The Conference will provide a graphing calculator to the 200 participants, and a project kit for each school from which teachers attend. Texas Instruments, Inc. has made the calculators and projector kits available to the conference project at discount prices. Participation in the conference requires a signed agreement of understanding from the teacher and building principal to provide local access to the network and regular contributions by the teacher. The project evaluation will be carried out through participant questionnaires at the completion of the conference, after 0.5 years, and after 1 year. These will focus on the value of the conference in involving the teacher's involvement of participants in using technology in their instruction. A log of e-mail use will be studied in relation to getting teachers into electronic dialog. ***